Evaluation of Building Performance During the Loma Prieta Earthquake Based on Strong-Motion Records

This is a post Loma Prieta earthquake (Oct. 1989) investigation project in learning from this damaging event. The objectives of the research are to use these records to: (1) conduct a comprehensive building performance study for the time-varying nature of vibration periods and damping, and (2) estimate the maximum story drift, a crucial quantity for the assessment of possible building damage. A well established system identification method, improved in accuracy and efficiency in a related research program supported by the National Science Foundation, will be used for the parameter identification in this research. The identification of the vibration period and damping will be carried out for about 40 building records. The story drift estimation requires the development of a new method and will be carried out for selected buildings. The time-varying nature of the building period, damping, and story drift will be used to assess and calibrate the building damage state. The information obtained will form the basis for a building performance evaluation procedure. Based on the findings of this research, a procedure of post-earthquake building performance evaluation using strong motion records will be recommended for future applications.